A Planning Seminar for Faculty Participating in the Rollins College Quantitative Learning and Teaching Program

9456000 Child A Quantitative Learning and Teaching Program has been established at Rollins College. Faculty from nine different departments in Mathematics, the Sciences, Economics, Politics, and Business have been working together to establish interdisciplinary initiatives involving teaching and learning of quantitative skills. In the last two years, with support from the Bell South Foundation, participating faculty have gathered and studied materials on quantitative problem solving, have created instructional guidelines, established a resource center, brought in experts as consultants to address the faculty, established two computer based classrooms, hired an instructional specialist to work with faculty, and recruited the first group of students to work with faculty on the project. An important component of this project is a summer seminar for faculty. This seminar series is being extended throughout the academic year. This enables a larger number of faculty to participate. The goal is to extend participation to faculty in all departments.